Operator Theory, Free Harmonic Analysis, and Related Problems

ABSTRACT

DMS-0070459

The proposed research involves the study of operators and their invariant
subspaces, and some problems arising in the theory of free random variables.
The problems on invariant subspaces will focus on the structure and
classification results which can in special cases be inferred from the combinatorics of
Young tableaux. Problems in free probability will concern the weak laws
for arbitrary arrays, and the study of multiplicative stability. The
finer harmonic analysis of free convolutions will also be studied.

The work proposed here is mostly of a theoretical nature, and it is
intended to clarify some (sometimes unexpected) connections between objects studied
in different areas (such as operator theory, complex analysis, and
combinatorial analysis). This kind of work does often have connections
with more applied areas. The one specific applied area closely related to the operator theory
is control theory and optimization where operators have indeed found rather striking
applications.